Dynamics of Mediated Electrochemical Synthesis in Microemulsions

The objective of this project is the development of a fundamental understanding of how dynamic interactions involving microemulsion constituents, catalytic films, and reactants influence reaction rates in electrochemical systems. Results will guide the development of new electrodes and reaction systems designed specifically for microemulsions. Electrochemical addition and cyclization reactions will be targeted for ultimate application to the synthesis of fine chemicals including lactones, pheromones, and optically active olefins and alcohols. A key issue to be addressed is the influence of micellized surfactant within catalytic polymer layers on catalyst formal potentials and catalytic activity. New catalytic electrodes specifically for carbon-carbon bond forming syntheses in microemulsions will be developed. Effects of property-altering modifications of polylysine-cobalt complex films will be explored. Compositions of microemulsions and properties of catalytic coatings will be tuned for best reaction rates and pathways for key reactions. The broad impact of this work will be to provide fundamental guidance for the design of efficient mediated electrochemical synthetic processes in relatively inexpensive, low toxicity, water based media.